Inventory and Computerization of WPA Archaeological Collections

The Works Projects Administration funded numerous archaeological projects in the 1930s. These projects abruptly stopped with the start of World War II. The result is that materials from surveys and excavations were never properly catalogued, inventoried, or stored. The resulting disorganization makes them extremely difficult to use. The Texas Archaeological Research Laboratory of the University of Texas seeks to improve the research accessibility and scientific usefulness of the archaeological collections and documents generated by the WPA.University of Texas projects of 1937 to 1941. The staff will reinventory, systematize and rehouse the collections, inventory and cross.index the accompanying fieldnotes and documents, and produce a computer based inventory and data file for researchers. The WPA projects are extremely important for Plains archaeology. These collections provided much of the empirical foundation for the development of scinetific archaeology in Texas.